Research On Novel Oxide Materials, Award in Indian Currency

Description: This project supports Dr. C.N.R. Rao, Professor, Solid State and Structural Chemistry Unit of the Indian Institute of Science, Bangalore, for collaborative research with Dr. John Honig, Materials Research Center, Purdue University. The research will cover development of novel oxide materials with special focus on high-temperature superconductors. The research to be carried out by Dr. Rao deals with the synthesis of interesting oxide systems and examination of structure-property relations. It also deals with the discovery of new classes of oxide with unusual electronic and magnetic properties, including the very important property of superconductivity at relatively high temperatures. This project is a continuation of research that Dr. Rao has carried out under an earlier NSF grant INT-8309897. Scope: The collaboration of Professor Rao's team at Bangalore and Professor Honig's team at Purdue has been successful and resulted in a significant number of publications. Rao is one of India's most distinguished scientists. He has done pioneering research in numerous areas of materials and structural chemistry. It is likely that this project will result in significant advances in the field of new materials and better material characterization. Dr. Honig is a participant in a newly established Indiana Center for Innovative Superconductivity Technology, which has provided $500,000 for the first year of operation by the State of Indiana. His work with Dr. Rao would fit well with the objectives of that center, and with enhancing materials science research in the U.S.